Renovation of Science Research Laboratory for Undergraduate Women Science Majors

The proposed renovation of the science laboratory will provide a modern, safe and attractive facility for research and research training for undergraduate women science majors and science faculty. The renovated area (1660 sq. ft.) will provide more laboratory tables and sinks, a greater number of hoods, ample space for laboratory instruments, a safety center, updated chemical storage and waste collection areas, and good overall ventilation - all of which are critical to an undergraduate research laboratory. Further, renovation of the tissue culture and microbial culture areas will greatly reduce contamination and stimulate biochemical research. The renovated laboratory meets the research needs of the five full-time and three part-time science faculty in Biology and Chemistry. Projects include inorganic synthesis, electrochemistry, catalysis, enzyme structure and function, data acquisition protocol and microcomputer applications for chemical analysis, molecular biology of senescence, control of carotenoid synthesis in citrus fruit, microencapsulation of chemicals for controlled release systems, nutritional studies of microbes, and development of pesticide resistant plants. This project will create an exciting and stimulating environment where young women, especially minority young women, can develop their confidence and potential as scientists and encourage them to consider science and engineering careers.